Collaborative Research: Role of Shear Heating in the Generation and Ascent of Granitic, Basaltic and Komatiitic Magma

9628154 Yuen The PIs propose to use fluid dynamical modeling techniques to study the role of viscous heating in magmatic systems and will study these effects in the generation of melts in mantle plumes and in the formation and ascent of granitic diapirs. They hypothesize that viscous dissipation will prove important for understanding both processes. ***